Disturbance, Spatial Heterogeneity, and Biotic Diversity in Arid Australia

The inland Australian desert is one of the last remaining areas where natural wildfires remain a regular and dominant feature of an extensive, largely undisturbed, natural landscape. A fire succession cycle generates spatial and temporal heterogeneity. Habitat-specialized species can go extinct within a given habitat patch (fire scar), but remain in the overall system by periodic reinvasions from adjacent or nearby patches of suitable habitat of different age. Such regional processes and thus the system-wide spatial and temporal al pattern of fire disturbance, facilitate local diversity. The project will develop and test a hierarchical Markov chain model of fire succession. The ultimate goal is to model the entire Great Victoria desert region as a dynamic habitat mosaic and to understand both the mechanisms of coexistence of its component species and the effects of fire disturbance in maintaining diversity.